Surface Ocean Oxygen Fluxes

9314687 EMERSON This study is t determine rates of net biological productivity and respiration in the oligotrophic ocean and the mechanisms that control this process. It is hypothesized that oxygen and carbon is cycled at this location in which about two thirds of the net oxygen production in the euphotic zone is accompanied by dissolved organic carbon (DOC) production and one third by particulate carbon formation. Most of the DOC is respired immediately below the euphotic zone (100-175m) and most of the particulate carbon escapes the upper ocean. Since DOM has a high C/N ratio, much less nitrite is required to fuel the biological pump than suggested by the "Redfield" ratio. Dissolved nitrate appears to be taken up in the region of oxygen respiration below the euphotic zone. This proposal is designed to test this hypothesis and study the importance of short term transients of net biological O2 production. Continuous measurements of net biological oxygen production will be determined by deploying a device for in situ measurements of total gas pressure and oxygen. The hypothesis will be tested by detailed simultaneous measurements of biological O2 production and dissolved organic matter at both Hawaii and Bermuda U.S. JGOFS time series stations, and by determining the rates of respiration and 15N-NO3 uptake below the euphotic zone.